Collaborative Research: RAPID: Exocube 2 - A Cubesat to Measure In-situ the Global Distribution of Light Species Densities in the Exosphere

A small satellite with a miniature mass spectrometer (referred to as INMS) as the centerpiece instrument and including all telemetry, communication and attitude control systems has been designed, the instrumental parts fabricated, and what remains is the integration of these parts required to achieve delivery by the spring of 2017. The purpose of this CUBESAT satellite mission is to provide in-situ densities of atmospheric species near 500 km, on a global scale. This satellite, named "EXOCUBE 2", follows directly on the "EXOCUBE" mission that had a similar scientific scope. EXOCUBE suffered communication problems due to an antenna deployment system failure, and one attitude control system gravity boom also failed. Nevertheless, the key science package, the neutral and ion mass spectrometer, did perform as expected and a small amount of data retrieved indicated the efficacy of that instrument, which flew for the first time, on EXOCUBE.

The rationale justifying a RAPID proposal for EXOCUBE 2 is that this satellite mission is manifested to fly on the NASA Educational Launch of Nanosat (ELaNa) launch queue in the fall of 2017. Achieving this date would require the ExoCube-2 satellite delivery to take place within the spring of 2017. The proposed work would rapid assemble and integrate the mass spectrometer and satellite bus to meet this demanding one-year schedule. The very short development time and minimal cost is made possible by the legacy experience and materials left over from the previous flight of the EXOCUBE satellite that unfortunately failed owing to the failure of the deployment of the telemetry transmitting antenna.